Graduate Honorable Mention Award: Blake Kessel

This special award will give Ph.D. student Blake Kessel additional flexibility in pursuing her graduate studies and research initiation in political science. This award will strengthen minority research participation in this area.